Acquisition of a 300 MHz NMR Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. This award, co-supported by the Chemistry Shared Instrumentation Program (MPS) and the Instrumentation and Instrument Development Program (BBS), will help the Department of Chemistry of the University of Louisville to acquire a high-field NMR spectrometer. The areas of research that will be enhanced by the acquisition include: 1) Conformational properties of backbone modified peptides 2) Quenching of fluorescence of aromatic amino acid residues by intramolecular sulfur atoms 3) Oligosaccharides and polysaccharides of bacteria 4) Conformational isomerism in metal formyl complexes 5) NMR studies of binuclear diiron complexes containing polyimidazolyl ligands.